Elementary, Secondary, and Informal Education: A Media and Discussion Project: The Research Revolution and the Shaping of Modern Life

National Video Resources, in collaboration with the American Library Association and the History of Science Society, is developing and implementing six-week discussion programs at 100 libraries across the country. The "Research Revolution and the Shaping of Modern Life" discussions will illuminate the organization and goals of scientific-technical work, the critical outcomes of research and development, the material and social byproducts of such work, and the ethical issues that sometimes result. During the program participants will screen and discuss documentary films on topics such as: an introduction to the rise of organized laboratory research and its results; new developments in quantum technologies and nanotechnology; recent developments in materials science and how artificially created materials have defined a modern way of life; the impact of genetic engineering and the Human Genome Project; medical imaging from x-rays to MRIs and CT-scans; and the science of meteorology and the problems of global climate change. Discussions will be lead by local scholars from Universities and research laboratories located near a participating library.